Generation and Evaluation of Machining Alternatives

Decisions made during the design of a machined part can significantly affect the product's cost, quality, and lead time. Thus, it is important to evaluate the machinability of the design, providing feedback so that the designer can change the design to improve its machinability. For machining purposes, a part is often considered to be a collection of machinable features. However, often there can be several different interpretations of the same part as different collections of machinable features. Each interpretation corresponds to a different set of machining operations, in a different order, with different machinability. To determine the machinability of the part, all of these alternatives should be generated and their machinability evaluated. This research will develop ways to do this automatically. For generating the alternative feature interpretations, the investigator's will use an algebraic approach, in which new interpretations will be produced via algebraic operations on old interpretations. For evaluating the machinability of each feature, the researchers will take into account the feature geometry, tolerance requirements, surface finish requirements, and statistical variations in the process capabilities. The information provided by such an analysis can be used in several ways: (1) To provide information to the manufacturing engineer about alternative ways in which the part might be machined. This information can be useful in developing process planning alternatives depending on machine tool availability. (2) To provide feedback to the designer identifying problems that may arise with the machining. By comparing the best achievable tolerances with the designer's tolerance requirements, investigator's should be able to suggest small changes in the design that will significantly improve the machinability.